RUI: Photoionization of Excited States of Atoms and Ions (Physics)

Photoionization cross sections and photoelectron angular distributions will be calculated for excited states of atoms and ions, utilizing Hartree-Slater wave functions. A broad range of energies, atomic states, nuclear charges and ionization stages will be studied. The objective is to understand the systematics of the cross sections and distributions. Hartree-Fock level calculations will be done as warranted. It is also proposed to formulate a new methodology for highly excited states based on the quantum defect theory.